Embedding Assessments in the FAST Curriculum

Embedding Assessments in the FAST Curriculum is a feasibility study on the impact of formative student assessment on student performance. The project develops a framework to create a set of formative and summative assessments from the FAST middle school science program. The assessment-embedded unit will be evaluated in a small, randomized experiment focusing on both student learning and teacher implementation. If the feasibility study demonstrates that the framework and methods impact teaching and learning, a full-scale research and development effort to link assessments with curricula will be proposed using FAST and other middle school programs.